U.S.-France Cooperative Research: Strategy to Represent Soil Hydrodynamic Characteristics in Soil-Vegetation Atmosphere Transfer Models

9512860 Cuenca This two-year award supports U.S.-France cooperative research in soil hydrodynamic modeling between Richard H. Cuenca at Oregon State University and Rafael Angulo-Jaramillo at the Laboratory for Hydrology Transfer and Environment, French National Center for Scientific Research, Grenoble, France. The investigators propose to develop an accurate model for soil water content and soil hydrodynamic characteristics at different scales and in conjunction with experimental programs. The U.S. and French teams will use data from experimental projects, including HAPEX-Sahel (Hydrologic-Atmospheric Pilot Experiment) and BOREAS (BOReal Ecosystem-Atmospheric Study). The results from this research are applicable to flood control, drought alleviation and monitoring of water resources. The project takes advantage of French expertise and access to important and unique data.